U.S.-Italy Cooperative Research: Multi-Formalism Support forDesign and Analysis of Concurrent Software

9217432 Young This award will support collaborative research between Michal Young, Purdue University, and Mauro Pezze, Politechnico di Milano, Italy. The project will investigate integration of multiple operational models of concurrent software. Research issues for the project include methods for reasoning about the relation between different behavioral models of the same component; techniques for analyzing the behavior of systems in which components may be modeled in different ways; automatic generation of state-space analysis tools with support for multi-formalism analysis; and models of time amenable to practical state-space analysis. The Italian investigator will contribute expertise in Petri net models of concurrent systems. The US investigator will bring expertise in the analysis of concurrent software and the integration of analysis techniques and tools in software development environments. Pezze will take the lead in the more theoretical side of the work, and Young will lead in the design and evaluation of the analysis tool generator. ***